RUI: Ice Scour Disturbance and the Structure of Arctic Bottom Communities

9321504 Oliver Ice scouring is the most disruptive and widespread physical disturbance to marine bottom communities in polar waters. At high latitudes, ice pressure ridges scour the sea floor to depths of 60m, and larger ice bergs ground as deep as 400m. This project will explore the ecological implications of this disturbance to arctic benthic populations and communities. It is a multi-disciplinary and joint Canadian-U.S. Program involving two major components. The first is to characterize and model the physical disturbance regime over a three-year period by repetitive mapping the study areas with high resolution side-scan sonar, and to quantify the scour recovery process by divers. This approach will enable us to identify newly formed scours each season, and to generate quantitative and ecologically relevant data on disturbance coverage, frequency, intensity, and physical recovery. The second component is to investigate benthic population and community responses to ice scour, documenting the successional stages of biotic recovery. They will test whether observed widespread patterns of zonation and larger spatial and temporal community mosaics are correlated to this key disturbance. This combined physical and biotic approach will enable them to develop a conceptual model of scour aging and recovery, and to evaluate the impact of this disturbance on benthic production and diversity. ***